Computer Analysis of Steroid Hormone Binding Proteins

In this three-year U.S.-Yugoslav cooperative research project in physiological processes between Irena Cosic, Boris Kidrich Institute for Nuclear Science, and Michael Baker, University of California, San Diego, the investigators will study the structures of the steriod receptor and its interaction with promoter sites on DNA. They will use a new approach for sequence analysis of proteins developed by the Yugoslav scientist and traditional computer analyses of proteins done by the U.S. scientist in their research. The results will advance understanding of the role of steriod processes in metabolic regulation, sodium and potassium levels, reproductive physiology and growth of certain tumors. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the governments of the United States and Yugoslavia. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal scientific institution in Yugoslavia, but include dollar funds for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.